A Chemical Investigation of Turkish Papaver Species

ABSTRACT NARRATIVE Description: This project supports the scientific cooperation of Dr. Maurice Shamma of the Department of Chemistry of Pennsylvania State University and Dr. Gunay Sariyar of the Faculty of Pharmacy, Istanbul University, Istanbul Turkey. The research is to reisolate the chemical character of the Turkish Papaver plant species to determine the alkaloidal fractions that occur in the species. In addition, the investigators will analyze the neutral and acidic extracts of these plants because very little work has been carried out on these non-basic components. All compounds obtained in sufficiently large amounts will be forwarded to the National Institute of Health for screening for anti-tumor and anti-HIV activity. They will also be tested commericially for agricultural use. Scope: This project is planned to have the Turkish P.I. identify and _____ gather the natural plants in Turkey. Plant extraction will be done at Istanbul University followed by initial separation and identification of compounds. The research data and samples then go to Penn State University for higher level purification and identification of chemical components. The Turkish P.I. will participate in this advanced research and data compilation. The advancement of the international exchange of scientific knowledge and the training and use of developing countries scientists fulfills a major objective of the Science in Developing Countries Program.